Intermediate Energy Nuclear Physics at HERMES

0072297
Lorenzon
Research will be carried out in high energy electron scattering with
The goal of determining the spin and flavour structure of nucleons. The main emphasis will be on studying the strange sea quark polarization, the gluon polarization, and transverse polarization effects in nucleons. The research will advance our understanding of the nucleons in terms of constituent quarks and sea quarks and how they interact with each other to form the protons and the neutrons.